Faculty Workshops for Implementing Reform of Business Calculus

This project is holding summer workshops to introduce college mathematics instructors to the reform of business calculus using materials developed by the NSF Harvard Calculus Consortium. The workshops feature the use of graphing calculators and computers, visits by professors from business, alternative pedagogies such as group learning, and concrete lessons and strategies for participants to take home. While the reform of engineering calculus for scientists and engineers is making considerable progress, the traditional business calculus has not gotten the same attention. A regional consortium of faculty teaching these materials is being formed to help enhance the teaching of busiless calculus throughout the area. Follow-up activities are occurring at sectional MAA meetings. Two-year college faculty from Truckee Meadows Community College are involved with the teaching and organizing of the workshops.